Proton and Ligand Interactions at Single Crystal Mineral/ Water Interfaces Using Scanning Probe Microscopy and Optical Second Harmonic Generation

This award in the Environmental Geochemistry and Biochemistry Program is supported by the Divisions of Earth Sciences and Chemistry and the Experimental Program to Stimulate Competitive Research (EPSCoR). Dr. Carrick M. Eggleston and Dr. Steven R. Higgins of the Geology and Geophysics Department, University of Wyoming, will develop methods to achieve crystal-face specificity in the measurement of mineral surface charge. The goal of the research is to move beyond a surface-average approach to information helpful to understanding mineral surface reactivity. The surface charge and potential as a function of pH and ionic media will be measured using atomic force microscopy (AFM) and in-situ optical second harmonic generation (SHG) spectroscopy for representative mineral surfaces, such as, corundum, hematite, rutile and quartz. These measurements will be compared to results obtained after the adsoprtion of organic molecules at the mineral-water interface. Of interest are citric, oxalic, p-nitrobenzoic, and 4,5-dinitrobenzene-1,2-dicarboxylic acids and rhodamine. Understanding reactions of organic and biological compounds with mineral surfaces are increasingly important to complete characterization of complex geological and environmental processes at the molecular level. The methods currently used in mineral surface geochemistry are not adequate. Here, the capabilities of AFM and SHG instrumentation will be tested as means of characterizing the surfaces of mineral surfaces found in `real world` samples.